CISE Research Instrumentation: Shared Interaction in Support of Design, Learning and Planning

CDA - 9529549 Fischer, Gerhard Arias, Ernesto Eden, Hal University of Colorado at Boulder Shared Interaction in Support of Design, Learning, and Planning Two InterSim (Interactive Simulation) stations are being developed, each composed of a large interactive surface and multiple 3-D interactors. These systems allow us to move beyond the interaction model of single user/single computer--with an emphasis upon shared interaction to mediate social aspects of learning, design, and planning. These paradigms integrate the use of physical objects--to support and encourage face-to-face interaction among the participants--with virtual objects--to provide computational support for the model underlying the simulation. When linked across a network, these systems can allow the interaction with simulations and among individuals at a distance. A two-phase prototyping process is being used: First, an initial version utilizing front-surface projection is being developed, allowing us to deal with some of the software and device-controller issues and demonstrating the applicability of the approach. Subsequent development will utilize newer technology to create a back-imaged system to resolve shadowing problems. To test and guide its development, applications of the technology are underway in the form parallel efforts in the areas of Conflict Resolution, Decision Making and Planning; Learning by Design: Cross-Cultural Science Classroom Interchange; and Human-Centered, Intelligent Agents Supporting Communication and Collaboration.